Deformations and Representation Theory

The investigator applies tools from group representation
theory to study deformations of representations of profinite
groups and of complexes of modules for such groups. The
investigator's main theme is to examine problems and
applications related to generalizations of the deformation
theory of group representations developed by B. Mazur. The
generalizations are extensions of this theory to (1)
deformations of objects in derived categories, and (2)
deformations of representations whose images lie in various
linear algebraic groups, such as orthogonal groups. The
investigator studies applications of these theories to certain
embedding problems. The second theme is to determine for finite
groups the ring structure of the universal deformation ring of
an irreducible modular representation, using only the local
structure of the finite group. The investigator also works on
one other project which concerns moduli spaces of representations
of finite dimensional algebras. The goal is to use the rich
algebro-geometric structure of moduli spaces to obtain a better
understanding of the geometric behavior of algebra automorphisms.

Groups are abstract mathematical objects by which one may encode
and study symmetry, for example in chemical molecules, crystals, networks,
or abstract mathematical structures. Representations of groups provide
a way to extract information about the internal structures of a group.
Roughly speaking, representations can be thought of as "linearized
snapshots" of the group which are given by explicitly described
matrices. In this project, the investigator studies deformations of
representations. The deformations of a given representation form a
family of representations which are associated to this representation
in a certain way. In case there is a single deformation which can be
used to describe all deformations, one talks about a universal
deformation. Universal deformations provide universal constructions which
can be used to solve certain problems all at once, which otherwise would
have to be solved in a case-by-case fashion. It is the goal of this
project to study certain generalizations of deformations of
representations which in turn should lead to more powerful applications
in different areas.